Differential Operators in Several Complex Variables

ABSTRACT

This project studies the complex and Kohn Laplacians in several
complex variables, the d-bar-problem on complex manifolds, as well
as their applications to and interplays with problems in algebraic
geometry and quantum physics. One of the main thrusts of the
proposed research is systematical study of the d-bar-Neumann and
Kohn Laplacians along the lines of the classical spectral theory
for the Dirichlet and Neumann Laplacians. The investigator will
continue his work on the interplays between spectral behavior of
these Laplacians and the underline geometric structures. A problem
of particular interest is to characterize geometric structures on
which these Laplacians have purely discrete spectrum. The
investigator will also study the spectral theory of related
Schrodinger operators with magnetic fields.

Complex analysis and differential equations arise naturally in
physics, engineering, chemistry, economics, and other sciences.
Spectral analysis of differential operators plays an important
role in quantum mechanics. The proposed research will further
explore the intimate connections between the seemingly unrelated
problems in several complex variables and quantum mechanics. It
could lead to new understanding and discoveries in both fields.
Ideas, tools, and techniques developed in this project will also
have repercussions in other fields. This project will have direct
impact on the development of human resources; it will support
development of new courses and texts that attract students into
mathematics and sciences. It will facilitate interdisciplinary
research activities with biologists and computer scientists.